Theoretical Atomic, Molecular, and Optical Physics at JILA

Research into a broad spectrum of topics in collision physics, ultra-cold atomic gases and optical physics, will be undertaken by the three PI's supported in this award. JILA, and the University of Colorado provide an ideal environment for the theoretical atomic, molecular and optical physics of the three investigators. The funding goes entirely for the support graduate students who, in addition to having superb mentors, will be exposed to the leading edge experiments in Bose condensation and quantum computing.